Algorithms for Nonsmooth Equations

This project will develop algorithms for solving nonsmooth systems of
equations, addressing areas where methods for nonsmooth equations lag
behind those for smooth equations. The first of these areas involves
solving highly nonlinear problems where an associated merit function
may have local minima that are not solutions. Such problems cause
difficulties for descent-based methods, which may converge only to a
local minimum of this merit function. The second area focuses on
solving ill-posed problems (that is, those with singular, or
ill-conditioned Jacobian matrices at a solution). The third area
addresses developing limited memory methods for solving very
large-scale problems. In the smooth domain, a number of tools are
available for solving such very large-scale problems. These include
preconditioned conjugate gradient methods, limited-memory quasi-Newton
methods, Chebyshev methods, and truncated Newton methods. Possible
extensions of these methods to solving nonsmooth systems of equations
will be explored. In addition to the pursuit of these natural
extensions of smooth methods to the nonsmooth problem domain,
practical algorithms for solving generalized equations will be
developed. The ultimate goal of these four research areas is the
development of high quality computer software for solving nonsmooth
equations, which will be made publicly available.

In less technical terms, this project is aimed at developing high
quality computer software for solving certain types of nonsmooth
equations for which current computational tools are inadequate.
Nonsmooth equations provide a unifying framework for many important
mathematical problems and have applications in a wide variety of
fields. Some examples include international trade, development
planning, financial options pricing, robotics, contact mechanics,
traffic equilibria, and economic equilibria. Because of this wide
array of applications, the development of software that improves
our ability to solve nonsmooth equations will provide a valuable
tool for solving many problems of national interest.